Engineering Research Equipment: High-Performance Graphics Workstation

Funded through an Engineering Research Equipment Grant, equipment will be purchased for use in a diverse set of computational research thrusts which model details important to: chemical vapor deposition, polymer processing, liquid crystal mixture behavior, and enzyme catalysis. The equipment is a high performance graphics workstation. The research is relevant to a variety of engineering systems, ranging over chemical, mechanical, and bio-engineering.